Geometric PDE's and Monge-Kantorovich Theory in Problems of Optics and Differential Geometry

DMS-0405622

P.I.: Vladimir Oliker, Emory University

Title: Geometric PDE's and Monge-Kantorovich Theory in Problems of
Optics and Differential Geometry

ABSTRACT

The goal of this work is the development of geometric
methods for solving nonlinear partial differential equations (PDE's)
arising in problems involving maps with controlled Jacobian
determinant. Many problems in differential geometry, optics,
and other areas of mathematics and engineering are in
this class. Recently discovered deep connections between such equations
and Monge-Kantorovich optimal mass transfer theory in Euclidean space
and on manifolds will also be studied.
Among the topics that will be considered are the following.
(1) Development of geometrical and analytic techniques for solving
problems requiring determination of reflecting and refracting
interfaces with capabilities to transform intensity
distributions in a prescribed manner.
(2) Investigation of geometric problems involving hypersurfaces
with prescribed curvature functions and geometric inequalities
with emphasis on variational methods, especially,
those connected with Monge-Kantorovich theory; applications
of these variational methods to problems in convexity,
in particular, to the Minkowski problem and
its various generalizations, will be studied as a part of this program.
(3) Development of geometrically motivated, provably convergent and
efficient multi-scale numerical methods for solving nonlinear
second order PDE's arising in reflector/refractor problems of optics
and in geometric problems involving curvature functions and maps with
controlled volume.

Nonlinear partial differentials equations expressing energy conservation
laws as a constraint on the Jacobian of a map describing a physical
phenomenon are very common in science and engineering. For example,
in optics such equations arise naturally in problems
requiring determination of interfaces with prescribed
refractive and/or reflective properties; in astrophysics these equations
have to be solved when the shape of targets in the solar
system must be determined from indirect and limited set of measurements;
in weather prediction models based on quasi- and semi-geostrophic
approximations of atmospheric motion such equations describe
energy conservation laws; in computer science the same type of
equations arise in problems connected with radiosity estimates.
Typically, the theoretical analysis and numerical solution of
these equations is very difficult because of their highly nonlinear
structure. Fortunately, the geometric content common to all these problems
provides important insights leading to effective methods for their
investigation and numerical solution. Development of such methods
is the main goal of this research.